Mathematical Sciences: A Brownian Motion Model for Chemoreception

The proposed program of research entails studying absorption processses by small cells mainly in oceanic biology. The behavior of an individual molecule in the neighborhood of the surface of a cell will be studied from the point of view of 3-dimensional Brownian motion.